Group Travel to the Seventh International Valencia Meeting on Bayesian Statistics

PI: Luis Perrichi
Proposal #: 0137292

This award provides funds to partially support group travel to the seventh international Valencia meeting on Bayesian Statistics. The money, primarily, support junior researchers and graduate students with limited sources of funding. Members of the underrepresented groups will be actively recruited and encouraged to apply. The meeting will be held in Tenerife, Spain, from June 1-6, 2002. It brings together leading experts in the area of Bayesian Statistics and junior researchers, facilitating scientific interactions and providing a stimulating environment for the exchange of ideas. A pre-conference tutorial will be held that is targeted towards junior investigators, graduate students and people with limited exposure to the vast developments in the area of Bayesian statistics.